Summer Institutes in Comparative Anthropological Research

This project involves a summer institute in comparative anthropological research. The institutes will be supported for 3 years at the Claremont college in California. Building upon a previous 3-year series of summer institutes, the purpose is to teach the state-of-the-art in comparative and cross-cultural research to professional academic anthropologists and other social scientists. Issues to be taught include primary data comparisons, within-region versus world-wide comparative research designs, and comparisons where the historical period varies versus comparisons within one time. Preference is given to applicants with the Ph.D. who teach research methods to graduate students or undergraduates in the US. This institute is an important resource for advancing our technical capacity to study and explain the variation in culture in the world.